Dissertation Research: Determinants of Dietary Adherence among Elderly Rural Black Hypertensives

This project involves the dissertation research of an anthropology student from the University of Florida. The project studies the reasons why elderly Black Americans suffering from hypertension follow or ignore the dietary suggestions of their medical care givers. The student will interview 40 informants using a standardized model of "Health Beliefs" as well as other standardized measures of medical knowledge and personality. The purpose will be to explain variations in people's culturally- determined diet patterns. This research is important because the elderly Black population is an expanding portion of the nation, and is disproportionally susceptible to hypertension. This study will help medical care givers understand why some people follow a medically approved diet while others do not deviate from their childhood diets rich in fat, calories and salt. The knowledge can be useful to those designing programs of public education about how to treat hypertension.